Computer Simulation and Theoretical Studies of Liquid Mixtures: Towards a Unified Theory

The thermodynamic properties and phase equilibria of molecularly complex fluid mixtures are being studied using computer simulation and theoretical methods. The research is part of a comprehensive program that combines the methods of theory, simulation, and experiment. The study focuses on three types of fluids: those composed of nonspherical and polar molecules, hydrogen-bonded and associated molecules, and electrolytes. Increasingly sophisticated molecular dynamics and Monte Carlo simulation techniques are being developed to study such mixtures. These simulations are used to test both the statistical mechanical theories (perturbation and resummed cluster expansions) that are being developed, and also the intermolecular force models for these fluids. If successful, these methods will eventually replace the highly simplified and ad hoc methods used by engineers for complex mixtures.